Mathematics and Science Teachers - Training for Leadership

The goal of the proposed project is to work with a group of forty-five accomplished secondary school mathematics teachers who have responsibilities to provide mathematical experiences for gifted secondary school students in their home districts. Topics in advanced mathematics that are closely related to modern research results are expounded by world renown mathematicians in a companion project for the high school students and which is funded from outside sources. The teacher participants attend the lectures and discussion groups and learn about the mathematical topics as well as approaches that they could use in their home districts to offer some of the ideas to gifted students. The participants observe the students in the companion workshop and analyze the interaction between the students and the modern mathematical ideas.